Berkeley Particle Data Center

This grant will support the Particle Data Center at Lawrence Berkeley Laboratory. This group is responsible for collecting the results of many different particle physics experiments and providing them in summary form. They also make this information available on the Web. In addition, they provide an interactive Web site for the general public which allows anyone interested in Particle Physics to explore many of its concepts.